International Workshop on Computational Methods in Geosciences

Computational methods, in particular, those for partial
differential equations, have experienced major developments over the past
thirty years in both algorithmic advances and applications to other fields.
Computational simulation of physical phenomena has now fully joined
engineering experimentation and theoretical/analytical
analysis as the third method of scientific investigation.
As the application problems become ever complicate and challenging,
it becomes more and more difficult or even impossible to solve
these problems by isolated individuals. The magnitude and complexity
of the problems often require various expertise (such as field data
acquisition, modeling, mathematical analysis, computational methods,
computer programming and visualization, and data analysis), hence,
their solutions require persistent collective effort of international
scientific communities of various disciplines. Also, because face to
face interaction is important to effective exchange of ideas and
collaborations, it is vital to bring together researchers with similar
research interests to conferences of various scales.
To meet the need and to facilitate such an interaction,
the principal investigator (PI), together with colleagues from U.S., China,
and Korea, will organize the ``International Workshop on Computational
Methods in Geosciences", which will be held from July 5-7, 2007
at Xi'an Jiaotong University, China. The requested funding will be
used to support U.S. researchers, in particular, graduate students
and postdocs, to attend the workshop.

The anticipated international workshop is expected to contribute
to promoting, enhancing, and stimulating the cross-continental
research interactions and collaborations in mathematical sciences.
Such community-wise research activities often
serve the purpose of enhancing and promoting collaborations
between U.S. and international researchers in mathematical
and applied sciences, which in turn contributes critically
to the course of solving challenging scientific problems
such as flow and transport in porous media, weather prediction,
nano-materials design, genome sequencing and analysis.
In addition, organizing such a workshop in China will
bring prominent researchers from U.S. and Europe working in such
an active scientific research area to Asia, consequently, the anticipated
workshop will do a good service to and have a positive impact on
the international applied and computational mathematics community.